Workshops For High School Science Teachers: Ethics In The Classroom

9320255 Goldfarb In each of three summers, carefully selected pairs of science teachers from fifteen high schools will take part in a program to help them reformulate their science courses so as to offer students the opportunity to learn concepts and skills within the context of ethical inquiry. The teachers will explore a variety of contemporary issues confronting practicing scientists which raise questions of ethics and values. They will select issues for development into lessons on the basis of their own interests and experience. Specific attention will be given to the multitude of ethics issues related to the explosive developments in biotechnology, and the teachers will also peform genetic engineering experiments to illustrate the techniques and their applications. Follow-up sessions held during the fall and spring will be used to encourage the teacher pairs to share and critique the progress they have made in integrating ethics and values issues into their own curricula. The project instructors, working with the teachers, will edit teaching materials that have been developed and distribute them to all participants. Both the case studies and instructional materials for the institute, and the teaching materials, will also be widely disseminated to other interested teachers and administrators. A broadbased advisory committee will oversee and evaluate the project, as will a project consultant and the participants themselves. ***